Theory of Correlated Electron Systems

Theoretical research will be conducted on materials for which electron correlations play a fundamental role, focusing on heavy fermion and high-temperature superconductors. The heavy fermion system will be attacked using both phenomenological techniques and fundamental studies of microscopic origins with an emphasis on the coupling of the superconducting order parameter with the staggered magnetization. For high-temperature superconductors, analysis will be conducted on the theoretical basis for photoemission experiments. Variational Monte Carlo techniques will be used to study the interplay between correlation and disorder in both of these systems. %%% Theoretical research will be undertaken on fundamental issues relating to two very important systems of current interest: high- temperature superconductors and heavy fermion superconductors. Insight into both of these systems will affect basic concepts of condensed matter and materials physics, yet has the potential to have significant payoff in the commercial arena.